Assessment of Temporal Variability in Global Inorganic Carbon Distributions

ABSTRACT

OCE-9819977 / OCE-9903393

Investigators from Princeton University and the Bermuda Biological Station will synthesize the inorganic carbon data from the U.S. Joint Global Ocean Flux Study (U.S.JGOFS), the World ocean Circulation Experiment (WOCE), and other projects into a comprehensive picture of the global inorganic carbon distribution in the surface ocean, including anthropogenic carbon dioxide. Similar attempts have been made in the past, but this will be the first time that high-precision carbon system measurements will be brought together to permit a realistic modeling of the sea-air exchange of carbon dioxide. The resulting mappings are expected to be useful for the development of models of time-varying regional and global carbonate system parameters.